A Novel System to Study Photosynthetic Biochemical Autonomy of Chloroplasts

Rumpho 9808904 Photosynthesis is the only biological phenomenon that transfers light energy from the sun into molecules that provide an energy sources for developing and mature plant life forms and, in the process, produces oxygen. This process is typically limited to the plant kingdom, some bacteria, and the algae. However, a photosynthetic marine slug, Elysia chlorotica, has evolved as a result of forming an intracellular symbiosis with chloroplasts from the chromophytic marine alga, Vaucheria litorea. Once the symbiosis is established, Elysia can subsist in culture for at least nine months exclusively by carrying out photoautotrophic CO2 fixation as long as a source of light and CO2 is provided. This unusual, naturally occurring photosynthetic animal will be exploited for long-term studies of the mechanisms regulating the symbiotic association and the continued functioning of the chloroplasts in the absence of the usual sorts of regulation by the plant nucleo-cytoplasm. Several interrelated lines of investigation are proposed to address the question of the genetic and biochemical autonomy of the plastids as well as the potential for regulatory communication between the animal nucleo-cytosol and the algal chloroplast genome contributing to the success of the symbiotic association. The specific objectives include: identifying the carbon product exported from the symbiotic plastids to the seaslug, characterizing the ability of the seaslug and chloroplasts to maintain the composition and activity of the photosynthetic electron transport machinery over the life-time of the association; determining if the slug nuclear genome codes for and targets any proteins to the symbiotic chloroplasts; and elucidating the genetic autonomy of the symbiotic chloroplasts by mapping and partially sequencing the chloroplast genome of V. litorea. Findings from these studies will increase the general understanding of the intracellular regulation between chloroplasts and the nucleo cytosol in a natural and foreign environment, the autonomy of chloroplasts, and the evolution of organellar symbiotic associations.